Research Planning Workshop on Applications of Reinforcement Learning

This meeting is to bring together researchers who have applied methods for learning from delayed reward to real- world problems and to review progress along these lines. The invited speakers represent different theoretical paradigms, and the focus of the meeting on applied problems will encourage communication across traditional disciplinary boundaries. A review paper will be produced for distribution to the research community that summarizes the results of the workshop and should encourage further basic research in learning, in order to increase the breadth and effectiveness of applications.